Improving Technological Innovations for People with PhysicalDisabilities

This research will examine how people with physical disabilities, scientists and technologists who develop assistive devices for their use, and rehabilitation professionals who prescribe such devices, view rehabilitation success. The goal is to identify and examine disparities or misunderstandings in these views so as to develop a better understanding of factors leading to rehabilitation success or failure and improve rehabilitation assistance. The research will collect and analyze data from observations, interviews, questionnaires, and personality tests with representatives from these three groups.